Perceived Risk and Response to Emergency Events: A ChemicalFire in Odessa, Texas

This research seeks to understand the relationship between perceived risks and emergency events better through an exploratory effort focused on data collection and analysis. The study explores how prior risk perceptions affect public response to a specific hazard, and compiles a data set of public perceptions of risk during and after a significant fire at the Champion Chemical facility in Odessa, Texas. The two primary goals of this research are to examine the effect that emergencies have on the perceptions of risk among nearby residents, and to analyze the impact of perceived risks on emergency responses during an chemical accident. The study takes advantage of research conducted in the Spring of 1992 on perceived and acceptable risk in Texas communities. The pre-event survey data are used in a panel design by re-interviewing respondents in Odessa and one other Texas community studied in the Spring of 1992. The collected data will be analyzed to lay the foundation for a more ambitious proposal on the relationship between experience, and perceived and acceptable risk on the one hand, and perceptions of risk and emergency responses, on the other.